Improved Seismic Imaging of the East Pacific Rise from Mult-Channel Seismic Data

This program will continue the analysis of two aspects of the 1985 MCS data set from the East Pacific Rise. 1) Selective reprocessing and modeling of the CDP data will be done to the data from the 9 N survey area, which is the location of a forthcoming ODP drilling leg. 2) The nature of the velocity structure and thinckness of the uppermost crust along the EPR using Wide Aperature Profile data, will enhance the value of the ODP data . Improved seismic imaging and the development of a structural context will be of value in the planning and interpretation of future detailed surveys in this area.